RUI: Transitions in Quasiperiodic and Hierarchical Systems

The proposed research is to study a variety of quasiperiodic, hierarchical and complex systems with competing lengths, with main emphasis being the study of various transitions which occur in these systems. The concepts and tools of nonlinear dynamics will be used in understanding and characterizing the exotic behavior underlying these transitions. The major areas of investigation are: understanding and characterizing the long range order in spin systems such as quasiperiodic Fibonacci chains, Thue-Morse chains, hierarchical spin systems with ultrametric topology; spin, electron and phonon systems exhibiting cascades of transitions with fractal phase boundaries and quasiperiodic transitions to chaos in discrete maps.